Midcareer Mathematics and Science Teacher Preparation Program (MCMS)

This three-year teacher preparation project will develop and evaluate a model for recruiting and preparing midcareer persons to teach secondary school science and mathematics. Mills College and the Lawrence Hall of Science (University of California, Berkeley) faculties will address the issues of the critical shortage of well-qualified secondary science and mathematics teachers through an innovative two-year graduate Midcareer Mathematics and Science Program (MCMS). The aims of the program are to: (1) attract midcareer persons with strong academic and applied backgrounds in mathematics and science; (2) develop model subject update and methods courses for the midcareer population; (3) implement a preservice teacher education program specifically tailored to these midcareer candidates. The new model courses will emphasize recent developments and applications in the fields of mathematics, physics, chemistry, and biology and their relationships to the high school curriculum; the integration of concepts within and across fields; and hands-on, interactive teaching strategies developed in subject-specific methods classes and in school-based experiences. Course development, implementation of the model program, and evaluation of program effects will lead to a self-sufficient component of the Mills College credential program, to technical reports of program development and effect, and to instructional materials which can be implemented at other sites.